Supernovae and Astrophysical Gas Dynamics

The supernova phase of evolution in massive stars is important to understand because it is during this violent stage that most of the heavy element atoms in the Universe are created, including the iron-group of elements responsible for life, and the generation of magnetic fields in planets. Supernova SN1987a is arguably the most intensively studied object outside the solar system since its explosion in the Large Magellanic Cloud was first observed in early 1987. Already studies of this object, the first bright supernova, in the modern era of astronomy, have uncovered several surprises, for example, that stars that become supernovae can be red in color rather than blue, as astronomical theories have predicted. Moreover, Supernova SN1987a, being one of only two supernovae to be studied continuously since its outburst, furnishes a unique opportunity to understand the very early evolution of a supernova, e.g., over the first decade. The Principal Investigator (PI) proposes to construct theoretical models to explain the emission of light from SN1987a using the most up-to-date information on shock wave physics. Although it is thought that the slowly fading light outputs of most supernovae are powered by the radioactive decay of unstable nickel and cobolt isotopes, several details of the light output in SN1987a rule out this possibility. The PI intends to focus on this problem in this program and to construct numerical models to that would include effects by the most likely alternative mechanisms: (1.) interaction of the exploding supernova gas shell with material lingering near the star that was previously part of a "stellar wind" ejected by unrelated causes, and (2.) the generation of a second shock wave caused by the birth of a magnetized neutron star (pulsar) as a consequence of the supernova explosion. The answer to this question is expected to affect our understanding of a significant fraction of supernova during their early phases, and will have a critical bearing on attempts to understand later stages of supernovae.